Macromolecular Separation By Lorentz Forces

There is a considerable need for alternative techniques for the rapid separation of biological macromolecules. The PI proposes using the principle of Lorentz forces (i.e., a combination of electrical and magnetic fields) to effect a separation. While the theoretical basis for Lorentz forces is well known, its applicability to biological macromolecules has not been examined. This proposal seeks to test experimental conditions to demonstrate the feasibility of using Lorentz forces for biological separations.